Molecular Routes to Nanocrystalline GaN and GaN Films

This award to Wayne Gladfelter at the University of Minnesota is supported by the Advanced Materials Program in Chemistry and the Electronic Materials Program in the Division of Materials Research. The twofold goals of the research are the development of new precursors to gallium nitride which will permit lower processing temperatures, and the development of synthetic schemes for the growth of nanocystalline particles of defined size. New volatile precursors will be based primarily on gallium hydride complexes and organogallium azides. The chemical reaction mechanism of the deposition will be examined using film growth kinetics and isotopic labeling. Specific labeling of the precursors with deuterium and simultaneous profiling of H and D using forward recoil elastic scattering spectrometry will permit the determination of the source of hydrogen incorporation in the films. A novel chain-termination approach will be used to control nanocrystal particle size using known and new gallium hydride complexes. Under this approach, unreactive chain terminating groups will coat the surface of the gallium and nitrogen groups on the particles and prevent further growth or agglomeration. Gallium nitride is an attractive candidate for optoelectronic devices capable of absorbing or emitting blue light. This research will provide a picture of the evolution of gallium nitride film structure as a function of time, temperature, pressure and precursor structure. By correlating these data with studies of the deposition mechanism, the critical connection between growth chemistry and film composition and structure will be made.